Late Quaternary Evolution of the Lambert Glacier/Amery Ice Shelf System, Prydz Bay, Antarctica

Intellectual Merit:
Southern Ocean processes play an important role in Late Quaternary glacial-interglacial climate change. However, the direct influence of newly upwelled warm nutrient-rich Circumpolar Deep Water on the Antarctic cryosphere remains speculative. The PI proposes to test the hypothesis that Circumpolar Deep Water-derived ocean heat negatively impacts the mass-balance of Antarctica’s ice sheets during deglaciations using precisely dated late Quaternary paleoceanographic studies of Antarctic margin sediments and a suite of geochemical proxies measured on three existing glacial marine sediment cores from the Prydz Channel, Antarctica. Specifically, the PI will use these data to reconstruct the Late Quaternary history of the Lambert Glacier/Amery Ice Shelf system; evaluate the timing, speed, and style of retreat of the Lambert Glacier/Amery Ice Shelf system during the last deglaciation, and to assess the impact of Circumpolar Deep Water intrusions on the Lambert Glacier/Amery Ice Shelf system in the Late Quaternary. Diatom bound radiocarbon and optically stimulated luminescence techniques will be used to obtain precise stratigraphic age control for the Prydz Channel siliceous muddy ooze intervals. In addition, the PI will measure sedimentary 10Be concentrations to determine the origin of the siliceous muddy ooze units and to track past changes in the position of the ice shelf front.

Broader impacts:
This proposal will support an early career female scientist and will provide professional development and research experiences for women/minority graduate and undergraduate students. The PI will take advantage of USF’s Oceanography Camp for Girls.